The Virginia Middle School Engineering Education Initiative: Teaching Engineering in the Middle Schools

PROPOSAL NO.: 0230609
PRINCIPAL INVESTIGATOR: Richards, Larry
INSTITUTION NAME: University of Virginia Main Campus
TITLE: The Virginia Middle School Engineering Education Initiative: Teaching Engineering in the Middle Schools
NSF RECEIVED DATE: 06/04/2002

Abstract

The award will develop engineering teaching materials which emphasize design for teachers
in middle schools. This builds upon the first stage of a long-term multidisciplinary project: the Virginia Middle Schools Engineering Education Initiative (VMSEEI). This will infuse selected engineering concepts and procedures into the context of preexisting science and mathematics classes.

Engineering schools need to develop ways to attract and retain students. Middle
school is when we start to lose potential students. In these grades, they make choices that
either open or close the doors to advanced science and mathematics. If we start in middle
schools, we can make students aware of engineering, and motivate them to pursue the
science and mathematics they need to succeed in engineering programs.

The interdisciplinary faculty team is in place, as are engineering students, education
graduate students and exceptional local science teachers. Additional middle school teachers are being recruited from local (Charlottesville\Albemarle) and regional (Central Virginia) schools, and teachers-in-training at the Curry School of Education at UVa will participate in this project.